Dynamic Simulation of Joints Using Multi-Scale Modeling

The objective of this project is to develop validated Neural Network models built upon a multi-scale approach and to demonstrate the utility of these models in a musculoskeletal model of the leg. These models will describe the non linear, rate dependent, non-homogenous dynamic response of menisci-tibio-femoral articulations in a computationally efficient modular package. The proposed research will include the development of four different computational models of increasing scale, novel methods to bridge the various scales, and model validation through a dynamic knee loading machine and clinical gait lab measurements. The final product will be publicly available Neural Network models that can be exported to commercial integrated development environments or in-house multi-body models. This work will be a valuable asset to the musculoskeletal research community providing computational tools that may aid research in broad areas such as human movement, prosthetics, tissue engineering, sport injury, and disease.